Transaction Management in a Multidatabase Environment

This project deals with transaction processing in a multi- database environment. A Multidatabase System (MDBS) is a collection of several, locally controlled, databases. It is assumed that local database management systems (DBMS) are not aware of each other and cannot exchange concurrency control information. The objective is to develop systematic methods for maintaining semantically related information in a consistent and reliable manner. The investigation is focused on transaction management issues that arise when global and local transactions are processed concurrently in a multidatabase system. Specific research problems include: 1. Extension of the existing theory for concurrency control and recovery in distributed database systems to the case of multidatabase systems. 2. The design of a mechanism for transaction management in a multidatabase environment, such that each local DBMS uses the same concurrency control mechanism. 3. Performance evaluation of various transaction management systems in a multidatabase environment. 4. Development of a theory of transaction management for cooperating multidatabase systems in a heterogeneous hardware and software environment. The results of this research will form theoretical foundations for transaction handling that will be beneficial to large-scale industrial multidatabase systems development.